Fourier Analytic Approach to the Geometric Tomography

ABSTRACT:

The main goal of this proposal is to study problems in Convex Geometry
and Geometric Tomography using methods of Harmonic Analysis. Geometric
Tomography is the area of mathematics where one investigates properties
of solids based on the information about sections and projections of
these solids. It borrows ideas and methods from many fields of
Theoretical Mathematics, such as integral and differential geometry,
statistics, and Fourier analysis. But perhaps its biggest overlap is
with Convex Geometry. A major component of this proposal is to study
problems which arise naturally from the recent work of the PI on Fourier
analytic approach to the case of the most general measure of sections of
star bodies. This method provided a number of new links between harmonic
analysis, probability theory and convex geometry. PI intends to
continue his work in this area and to consider a number of questions
motivated by Slicing Problem and Isomorphic Busemann-Petty problem. PI
also proposes a new approach to the study of the geometric properties of
convex sets with respect to the Gaussian measure. As an application PI
consider problems connected to the Gaussian Correlation Conjecture. The
idea, of this method, is to restate the conjecture in the language of
Geometric Tomography and to apply recently developed Fourier Analytic
techniques.

Geometric Tomography has a lot of real life applications. It has goals
similar to those of many related and often practical areas. One of the
best known examples is Classical Computer Aided Tomography, which aims
to reconstruct the density of objects by means of their line integrals.
Other examples are crystallography, robotics, stereology, and electron
microscopy. One of the ideas of this proposal is to connect theoretical
results from Convex Geometry to those practical areas via Geometric
Tomography. Another component of the broader impact of proposed
research lies in the training of graduate and undergraduate students.
Indeed, a lot of problems addressed in this proposal stated in such a
way that they are intuitively clear not only to graduate but to
undergraduate students. On the other hand, the answers for many of those
problems are quite counterintuitive which stimulates an interest of
students to the subject and Mathematics in general!